Industry/University Cooperative Research Center for Measurement and Control

9417074 Garrison The University of Tennessee's Industry/University Cooperative Research Center for Measurement and Control Engineering is being funded for one year under the "Self-Sufficient Partnership for Research" Program. The Center continues to meet the renewal criteria of the Industry/University Cooperative Research Centers Program. An evaluator is also being funded for one year to study the industry/university interaction occurring in the Center. The Centers researchers a well qualified to perform the research activities of the Center. The Program Manager recommends the University of Tennessee be awarded $40,000 for one year for the "Self-Sufficient Partnership for Research" Program and $8,000 for one year for an evaluation study.